High Energy Physics

9314092 Kreisler This group will continue to analyze the massive quantities of data taken in runs at Brookhaven National Laboratory and at Fermilab to study hadronic interactions in which charm and strange particles are produced in multiparticle final states. An innovative use of fast on-line computational techniques and specially developed hardware allowed trigger logic decisions to be made and data to be recorded at extremely high rates. Similar techniques are applied to off-line reconstruction to prepare event samples for analysis. Topics of interest to the University of Massachusetts group include Bose-Einstein correlations, hyperon polarization, precision measurements of hyperon masses, and meson-spectroscopy based on study of four-mesons states among which evidence will be sought for "glueball" production. ***